Biological Synthesis and Materials Properties of Bacterial Polyesters

The proposed research program would elucidate the molecular and supermolecular processes involved in the intracellular synthesis of reserve polyesters by bacteria and their intracellular and exocellular depolymerization by enzymes. Specific goals of the program include: (1) an understanding of the cellular transport processes and biochemical reactions involved in the utilization of: (a) good-growth good-polymer producing substrates, (b) good-growth non-producing substrates, and (c) non-growth substrates, especially in the cometabolism of mixtures of (a)+(b) and of (a)+(c) by which the coploymers from the non-productive substrates, (b) and (c), are produced; (2) an understanding of the enzymatic processes involved in polymer formation within the granule, especially the number, activity and location of the polymerase enzymes and the ability of isolated granules to participate in extracellular polymerization reactions; (3) an understanding of the interaction between depolymerase enzymes and individual polymer molecules, especially on solid surfaces. Additional goals of the program include the following: (i) to prepare entirely new, non-natural polyesters and evaluate their materials properties (including biodegradability) as plastics or elastomers; (ii) to contribute to the basic understanding of the biochemistry of cometabolism by using polymer production as a model system; and (iii) to isolate and characterize the intracellular polymerase and depolymerase enzymes excreted by bacteria and fungi that can utilize these polyesters as growth substrates in their biodegradation in natural environments. %%% Polyesters have proven to be extremely versatile thermoplastics in wide use in many industrial products. They can be fabricated into films, fibers and molded products. Polyester can also be used for packaging as well as in pure form, or when blended with wool, cotton, etc., for clothing material. These products produced chemically from petroleum provide many useful and indeed necessary items for industrial and medical uses. However, because they are synthetic organic chemicals from petroleum distallates, they are not biodegradable in any known current process and waste disposal of these products is an increasing problem world wide. Polyesters of identical chemical makeup and properties can be made by a large number of bacteria. Because they are made by enzymes in cells as opposed to chemical synthesis, they produce stereoregular polymers which are fully biodegradable. Essentially, these bacteria use biosynthetic polyesters as food. Theoretically these polyesters can be treated for disposal like any organic waste. We will be undertaking a study of the enzymatic mechanisms of degradation of these new biomaterials. In addition we have shown that these bacterial or "natural" polyesters have many new and potential properties that cannot be duplicated by chemical synthesis. For instance we have discovered a bacterium that can synthesize a polyester that is an elastomer, i.e. it behaves like rubber. The use of such a product in the production of many items-- surgical gloves for example that are biodegradable or diapers with biodegradable plastics liners would be a big advance in solving the plastic waste disposal problem.